Postdoctoral Research Fellowship in Plant Biology

This is a Postdoctoral Research Fellowship in Plant Biology to support Dr. Thorsness' research and training under the mentorship of Dr. June B. Nasrallah. The proposal outlines experiments to study self- incompatability in Brassica, using a combination of genetic and cell biology approaches. The cellular site(s) of expression of the genetically-defined S-locus, which directs the self-incompatability response, will be identified by transforming plants with chimeric genes produced by fusing the S-locus promoter to various reporter genes (including lethal and non-lethal reporters). The project has both theoretical and potentially pragmatic significance. The results will identify the cells of the plant which express the S-locus gene products, and will permit biological analysis of the self-incomptability phenomenon. The use of lethal reporter genes may generate plants with altered fertility which may be of agricultural usefulness.